U.S.-U.S.S.R. Workshop on Frontiers in Numerical Transport Theory (College Station, Texas: November 5-9 1991)

The main purpose of this joint US-USSR workshop, which is being organized by Dr. Paul Nelson of Texas A&M University and Dr. T.A. Germogerova of the Soviet Academy of Sciences' Institute of Applied Mathematics in Moscow, is to encourage leading researchers in both countries to identify scientific priorities for long-term cooperative research in the area of numerical transport theory. Ten scientists from each country will take part in the workshop, which will be held November 5-9, 1991 in College Station, Texas. The United States and the Soviet Union have the two most active research communities in this field and they tend to be complementary because of the Soviets' emphasis on mathematical approaches and the U.S. reliance on computational solutions. It is thus expected that there will be significant results from this activity. This project fulfills the program objective of advancing scientific knowledge by enabling leading researchers in the United States and the U.S.S.R. to combine complementary efforts and capabilities in areas of strong mutual interest and competence in the field of basic scientific research on the basis of equality, reciprocity, and mutuality of benefit.